SURE: Summer Undergraduate Research in Engineering/Science

This award provides funding to Georgia Institute of Technology, for a three-year, REU Site in electrical and computer engineering and electronics packaging, under the direction of Gary S. May. The project will involve ten undergraduate students, paired with both a faculty advisor and graduate student mentor, in individual research projects covering topics that include optoelectronics, integrated circuits and devices, and digital signal processing.